Tailoring of Protein A Specificity by Genetic Engineering and In Vivo Selection

This project offers potential for advancing the state-of-the-art in the development of new affinity agents for separations and therapy. First, it would demonstrate the applicability of phage-based screening systems to a new class of compounds. Second, it would extend the phage screening method to meet a new goal, the isolation of conditional binding mutants allowing reversibility of high affinity binding without the use of denaturing eluants. Third, there are good prospects of isolating variants of Protein A with immediate application in separations and immunotherapy.